Proposal for funding for the Show-Me lectures

The Show-Me Lectures is a series of
meetings in mathematical analysis
organized by the following four institutions:
the University of Missouri-Columbia,
the University of Missouri-St. Louis,
the University of Missouri-Rolla, and
Washington University in St. Louis.
Several lectures have been delivered in previous
Show-Me meetings on many topics of Analysis,
such as analysis on groups, Banach space theory,
differential equations, harmonic analysis,
and probability theory. These lectures were
presented by prominent mathematicians from all
over the world. Attendance was not restricted to
specialists from one field or another but was amimed at a
general audience who wanted to learn more about
another area and explore possible connections
with theirs. Such connections have certainly
appeared in many instances and in several occasions
have led to fruitful discussions and collaborations.
Many quality collaborations have been accomplished
as a result of these meetings and several more have
been initiated. It is our belief that these collaborations
benefit not only the researchers involved but also strengthen
and unify the field of mathematical analysis as an entity.

Mathematical analysis can be viewed as the part of
mathematics whose primary roots lie in calculus.
Its principal concepts are derivatives and integrals,
which appear in a multitude of different settings.
Mathematical analysis provides the foundation for applied mathematics,
physics, astronomy and other areas, and is one of the more dynamic,
viable, and applicable areas of mathematics today.
Among the many subspecialties of analysis of importance
to science and pure mathematics, one may cite the theory
of integral transforms, which plays a major role in tomography, the theory of
wavelets, which in recent years has revolutionized the study of signal
processing, and the theory of Banach spaces, in which mathematicians have
constructed a richly endowed universe with infinitely many dimensions.
Recent Showme seminars have included principal lectures on each of these
subjects, and on numerous other topics in analysis, by distinguished
mathematicians, some from various of our four universities in Missouri
and some from further afield. The primary objective of the Showme meetings
is to stimulate, promote, and enhance interaction
between the different groups of mathematical analysis.
In addition to the stimulating lectures, these meetings
are providing splendid opportunites for the analysts in Missouri and
nearby states to learn about each other's work and to initiate
collaborations. We anticipate many more fruitful seminars in times to
come.